Localization of Activated cAMP-Dependent Protein Kinase

The long term goal of this project is to elucidate how the activation of cAMP-dependent protein kinase following peptide hormone binding brings about a response in the cell. Specifically, the role of cAMP-dependent protein kinase in steroidogenesis and cell proliferation in Y-1, an adrenal tumor cell line, and bovine adrenal cortical cells will be studied. In this study, a specific and direct cytochemical, fluorescent, light microscopic probe and an immunogold electron microscopic procedure for localizing the subcellular sites of free catalytic and regulatory subunits will be correlated to biochemical assays of steroid secretion and cell proliferation. The results of this research will contribute to basic knowledge of the physiological role of cAMP-dependent protein kinase in triggering steroid hormone production and cell proliferation by adrenal cortical cells.